Applications of Exactly Solved Models

9704373 Sutherland Following the recent discovery of several exact solutions of important low dimensional models, for example models with long range interactions in a lattice, calculations of ground state correlations including time-dependent behavior and the use of conformal symmetry to calculate the correlations, the PI is planning to study the application of these ideas to real systems and develop formalism for the calculation of experimental observables and compare them to the experiments. The specific experiments to be considered in light of specific theoretical models are: (1) the optical properties of conducting polymers and the sinh-cosh model (2) The Hubbard-Peierls model of dimerized chains and hyperbolic exchange models and finally (3) the Coulomb gap, its effect on the transport properties of electrons and its possible origins in the calculation of ground state correlations. %%% The PI is well known for several exact solutions to model problems in low dimensional systems. Here he is planning to apply the insight he has gained form these exact solutions by calculating experimental observables in some charge transfer compounds and conducting polymers. He is planning to do this by a careful reconsideration of the missing details in the models which he has already solved. He is hoping for a close collaboration with several experimentalists and also theorists to indicate the possible opportunities and areas of improvement. ***